Development of Techniques for Neural Network Transfer, as Applied to Hazardous Waste Characterization

IRI-9502671 Pratt, Lorien Colorado School of Mines CAREER: Development of Techniques for Neural Network Transfer, as Applied to Hazardous Waste Characterization. In recent years, neural network systems have been used to provide solutions to a variety of problems, from speech recognition and manufacturing control to forensic hair analysis and medical diagnosis. This project uses an application to a problem of national interest -- remediation of hazardous waste sites -- as the focus of a program of research with broader implications. Networks built as part of this project are being used to aid in the interpretation of data supplied by noninvasive sensors such as magnetic devices and ground penetrating radar, in order to characterize the location and nature of buried waste before it is dug up or treated in situ. Students at both the undergraduate and graduate levels are involved in this project, which serves both educational and research purposes. Within the work on waste remediation, research is being undertaken on transfer of knowledge. Neural networks are automatically constructed ("trained") from a set of data representing desired system input and output, and neural network transfer addresses the question of how a network trained for one task can be used to aid in training a network for a new but related task. Without transfer, training times for a new task can be lengthy, and a large amount of training data can be required. With transfer, both of these factors can be reduced. Transfer applied to the hazardous waste remediation problem addresses important practical concerns in that type of application. For example, a network trained to interpret sensors at one site can be used to facilitate training for a network with different geophysical characteristics. Also, a network trained on data generated from a synthetic sensor model can be used to facilitate training on field data.